Plurisubharmonic Functions on Algebraic Varieties

ABSTRACT:
The classical Phragmen-Lindelof theorem extends the maximum principle
to unbounded analytic functions by showing that an analytic function that
satisfies an asymptotic exponential bound in the upper half plane and a
uniform bound on the real axis in fact satisfies a uniform exponential
bound in the upper half plane. Research of the past three decades has
shown that the validity of estimates of a similar character for analytic
functions on algebraic varieties in n-dimensional complex Euclidean space
are in fact equivalent to certain properties of linear constant
coefficient partial differential operators. Some such properties of the
operators are surjectivity on the space of real analytic functions or
Gevrey classes, the existence of lacuna in fundamental solutions, the
existence of linear solution operators, and continuation properties of
solutions of the homogeneous equation(s). While there are different sets
of these estimates associated to the different properties of the operator,
they all are similar in spirit. The aim of this work is to develop
methods that give a geometric characterization of the algebraic varieties
for which a given Phragmen-Lindelof condition is satisfied. If
successful, the work should also give insight into questions about the
partial differential equations such as the existence of fundamental
solutions with cone-shaped lacuna.

This work is focused on developing tools in complex analysis that
can be used to answer basic questions about linear partial differential
equations. In the 1950's, Laurent Schwartz formulated such fundamental
problems for general linear partial differential equations. Are they
always solvable? If so, can the solution be chosen as smooth as the data
in the problem? Do fundamental solutions exist? Can the equations be
solved with a "formula", so that the answer depends linearly on the data
of the problem? Most of these questions were answered in the 1950's by
Ehrenpreis and Malgrange. However, the question of whether the solution
could be chosen to be real analytic when the data is real analytic was
open until the late 1960's when the first counter examples were given. In
1973, Hormander gave a characterization of the equations with this
property in terms of the validity of certain inequalities for analytic
functions on the zero set of the polynomial giving the differential
equation. In 1990, Taylor, Meise, and Vogt answered the question about
the existence of "formulas" for the solution and showed they were also
characterized in terms of some similar inequalities. The aim of this
project is to develop tools that allow one to decide whether or not the
required estimates are valid for a given partial differential equation. We
believe that it is possible to develop an algorithm that will make the
verification, and further, will explain the geometry of the zero set of
the associated polynomial that is necessary for the inequalities to be
satisfied.